Collaborative Research: Seismic Velocity, Compaction, and Pore Pressure in Underthrust Sediments, Nankai Subduction Zone

Funds are provided to better constrain in-situ pore pressure, relationship between pore pressure and porosity and compaction state of sediments in the Nankai margin using existing 3-D seismic data. Pore pressure and compaction state of underthrust sediments may be a key control on fault behavior because the decollement localizes at the top of these sediments. The work will provide important information necessary for the drilling of the Nankai seismogenic zone under IODP.